Geochemical and Isotopic Study of Central American Volcanoes

This is for continuation of a long-term study of the petrogenesis of lavas from Central American volcanoes. The PIs have been able to correlate chemistry with thickness and dip of the slab. They will now try to: 1) characterize their postulated four sources for multi component mixing, 2) analyze for Cs in the slab-derived fluid, 3) attempt to determine regional variations in the mantle through modelling, and 4) map the distribution of the slab component in regions of diffuse, behind-the-front volcanism.